Benthic Flux Meter Study Across the Costa Rica Margin

Funds are being provided for the deployment of 14 benthic flux meters that will be combined with ocean-bottom seismometers (OBSs), and 8 autonomous flux meters, across the Costa Rica subduction zone. The meters will provide information about the regional changes in diffuse fluid expulsion patterns across this convergent margin. The study will be carried out in conjunction with another funded study across the Costa Rica subduction system that will deploy the OBSs. The flux meters are designed to measure slow to moderate flow rates and will provide broad regional coverage. In the Costa Rica system most of the fluid expulsion is expected to be slow to moderate diffuse flow. Knowing these flux rates is relevant to the objectives of the MARGINS' experiments on the Subduction Factory (SubFac) and SEIZE topics.